Workshop on Biotechnical Soil & Slope to be held on August 21-23,1991, in Ann Arbor, Michigan

The objective of this workshop is to provide a forum for the exchange of views and information, to assess the state of the art, and to identify research issues and needs in the area of soil bioengineering systems. Predictive models accounting for the reinforcing/stabilizing role of roots and other natural fibrous inclusions in the ground, durability and long term stability, conjunctive use of vegetation and synthetic textiles, cost effectiveness comparisons with conventional systems will be discussed by leading soil bioengineering practitioners and experts.